On Certain L-Functions Conference

This conference will focus on the current state of the Langlands program
from several viewpoints. Topics will include; automorphic L--functions
and functoriality, local representation theory and the Langlands conjectures, applications to algebraic geometry, trace formulae and applications to functoriality, and applications to number theory and special values of L--functions. We expect this conference will attract a broad, international audience, and will be an important opportunity to report on recent progress within the theory of automorphic forms and
discuss future avenues of investigation. There will be approximately 25
hour long lectures, along with the chance for researchers to engage in informal discussions.

The conference's broader impact will be realized through the opportunity of young researchers to advance their careers. We also hope to attract members of underrepresented groups, including minorities, women, and persons with disabilities. We expect to provide funding for speakers, graduate students, postdoctoral fellows, women, minorities, persons with disabilities, and generally those without other Federal support.